CAREER: Surface and Interface Properties of Antiferromagnetic Heterostructures

9734051 Lederman This is a CAREER Award to an EPSCOR grantee. Model antiferromagnets will be used to study surface and interface magnetic excitations and surface magnetic ordering phenomena of artificial heterostructures. There is much interest in these materials because they have simple structures and therefore they can be understood theoretically and their behavior modeled by a computer. The results will significantly contribute to our basic understanding of low-dimensional magnetic systems, and will be used to understand more complex systems that have important technological applications. A novel waveguide-thin-film spectroscopy will be employed to probe the magnetic excitations. Additional information regarding the antiferromagnetic surface long range order will be obtained from magnetic measurements of ferromagnetic overlayers and neutron reflectivity measurements. The educational objective of this proposal is to develop science outreach and recruiting programs in the State of West Virginia to prepare students for the technology-based economy of the twenty- first century. The educational portion of this project will be composed of three parts: 1) integration of collaborative and hands-on activities into the physics curriculum at West Virginia University; 2) participation in science outreach and recruiting programs in the State of West Virginia; and 3) involvement of undergraduate physics students directly in the research program. %%% This is a CAREER Award to an EPSCOR grantee. The research objective of this project is to study the magnetic properties of interfaces between model magnetic materials. There is much interest in these materials because they have simple structures and therefore they can be understood theoretically and their behavior modeled by a computer. The results will significantly contribute to our basic understanding of very small magnets, and will be used to understand more complex systems that have important applications in magnetic storage and magnetic sensor applications. The educational objective of this proposal is to develop science outreach and recruiting programs in the State of West Virginia to prepare students for the technology-based economy of the twenty-first century. The educational portion of this project will be composed of three parts: 1) integration of collaborative and hands-on activities into the physics curriculum at West Virginia University; 2) participation in science outreach and recruiting programs in the State of West Virginia; and 3) involvement of undergraduate physics students directly in the research program. ***